Oceanographic Instrumentation, R/V CAPE HATTERAS

9820676
Ustach
This award to Duke University will provide instrumentation for oceanographic research for use on R/V Cape Hatteras, a research vessel operated by the Duke/UNC Oceanographic Consortium as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a box corer and grab sampler for marine geological studies and radio and light beacons for locating and tracking instruments. Funds are also provided for replacing ten shipboard computer monitors. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly along the mid-Atlantic U.S. margin, in 1999 and future years.
***